Physiological Instrumentation for Basic and Advanced Undergraduate Laboratories.

The Department of Biology is upgrading its basic Animal Physiology course with the acquisition of sophisticated, state-of-the-art equipment. The new equipment includes such electrophysiological instrumentation as microcomputers to interface with dual channel oscilloscopes, pressure transducers, polygraphs, and accessory equipment -- all of which have a wide range of applicability and flexibility. Students taught on this new equipment will be prepared to enter the upper level courses in the Department in such diverse subdisciplines as Physiological Ecology, Endocrinology, Advanced Cellular Physiology and Neurophysiology. The high percentage of students who pursue graduate education in Biomedical fields and the historically high demand for training in Physiology indicate that this equipment is being used productively.